RUI: Galois Structures in Local Number Fields

This award supports the investigator's work in algebraic number theory and
his collaboration with colleagues. The proposed projects revolve around two
central questions in the theory of local number field extensions: What are
the invariants that determine the Galois module structure of ideals (and
also that of the higher unit groups)? What is the effect of twists by
characters of Galois representations on these structures? In addition, this
award provides support for undergraduate research.

Number Theory is an area of mathematics that begins with the properties of
the whole numbers and is currently applied to problems in cryptography and
coding theory. Efforts to resolve questions such as Fermat's Last Theorem,
have led mathematicians to expand the set of numbers they consider (i.e.
beyond the whole numbers, beyond the rational numbers). Fundamental
properties of these sets, called algebraic number fields, and the
fundamental properties of their localizations, are the focus of the
investigators research. The Galois group captures the symmetries of an
algebraic number field. Using the Galois group, the investigator proposes
to investigate subsets of basic importance ? additive ones that generalize
the integers and multiplicative ones that generalize plus/minus one. Beyond
supporting the research described above, this award will support
undergraduate students who are engaged in number theoretic research with
the investigator.